RUI: Applications of Logic to Computer Science

The principal purpose of this research proposal is to investigate the possible applications of the recent developments in the Logic of Knowledge, in Distributed Computing, Artificial Intelligence and other areas. In particular knowledge revision, the problem of logical omniscience, formalization of probabilistic knowledge, and other areas where the notion of knowledge can be expected to play an important role will be investigated.